POWRE: Developing a Research Methodology for Studying Mobile IT Usage and Person Mobility

EIA- 0075067
Mark, Gloria
University of California-Irvine

POWRE: Developing a Research Methodology for Studying Mobile IT Usage and Person Mobility

The objective of this work is to develop a new methodology that is suitable for evaluating the usage of mobile information technologies, as well as person mobility. The research activity consists of adapting a microcamera technology as an evaluation tool. The project encompasses development of specialized coding software and data analysis techniques and development of supplementary evaluation tool for an electronic diary. The system testing will involve actual users in the field, obtaining user feedback, analyzing the data, and refining the technology and evaluation methodology.